Direct in Situ Measurement of Plasma Transport Coefficients and Electric Fields Using Laser Induced Fluorescence and Optical Tagging (Physics)

Plasma diagnostic techniques based on laser induced fluorescence are used to study transport characteristics in a fully ionized plasma. A recently developed method for determining locally averaged electric field, from ion acceleration data, is used to make experimental determinations of the Fokker-Planck coefficients under various plasma conditions, for comparison with theory.